EAGER: Toward end-to-end control for robotic lower-limb prostheses with a validated simulation approach

The long-term objective of this project is to leverage the simulation and artificial intelligence (AI)-enabled workflow of modern robotics, enabling the generalization of these methods to the unique and data-scarce application of robotic prostheses. Developing generalizable learning-based control strategies for robotic prostheses will require both high-fidelity simulation models and large-scale datasets, resources that remain scarce, difficult, and expensive to obtain. Despite significant advances in simulation that have enabled the development of some large human locomotion datasets, there remains a critical need to characterize and reduce discrepancies between simulated and physical system behavior for prosthesis users. We will demonstrate the framework's effectiveness by applying it to the Open-Source Leg, an open-source platform that enables fast, cross-cutting advances in shared control development. This initiative will provide critical training data for advanced simulation and end-to-end deep learning and reinforcement learning control networks to function and will provide initial feasibility of such approaches.

The work will validate a high-fidelity simulated biomechanical model of a user-prosthesis system that can be leveraged for end-to-end control development. This work will build a foundational dataset of people with amputations performing cyclic and non-cyclic tasks with the prosthesis collected across laboratories. The dataset will serve as the baseline for training the sim-to-real data-transfer network. Additionally, this work will validate development of an end-to-end control framework that closes the sim-to-real gap in sensor data and estimates joint torques for prosthetic control, combining supervised learning with off-policy reinforcement learning. The outcome of this project will include a validated foundation to leverage physics-based simulation in the development of a new generation of prosthesis control approaches at the forefront of robotics.